Postdoctoral Fellowship: MSPRF: Bridging Coding Theory and Constraint Satisfaction via Locality

This award is made as part of the FY 2025 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Joshua Brakensiek is “Bridging Coding Theory and Constraint Satisfaction via Locality”. The host institution for the fellowship is the University of California - Berkeley and the sponsoring scientist is Venkatesan Guruswami.